NSF Central Europe Summer Research Institute (CESRI)

This three-year award allows the PI, the Institute of International Education (IIE), to develop a summer research activity for graduate students, the Central Europe Summer Research Institute (CESRI). It will provide US graduate students in the sciences and engineering with a high-quality research experience in Austria, the Czech Republic, Germany, Hungary, Poland, or the Slovak Republic.

IIE's external selection panel of faculty members in science and engineering fields will select students whose proposals meet the highest merit criteria and demonstrate promising research results. The program will place US students at a critical point in their careers in strong Central European institutions. This will strengthen the quality of their degree programs and produce a stronger pool of US researchers.

Future US researchers will develop unique research skills that will improve their expertise and credential and that will help them contribute to the global research community. The international exposure will provide the students with a unique awareness of how other cultures solve scientific and technical problems.